Connection of Schools to Ohio Academic Resources Network and NSFNet

The Ohio Academic Resources Network (OARnet) is the NSF mid- level network that serves the State of Ohio. A primary goal of OARnet is to facilitate collaborative projects and sharing of resources between institutions, including those outside the state. OARnet connections are available to Ohio academic institutions engaged in research or instruction. OARnet intends to eventually connect all educational institutions in Ohio. This award funds establishment of five connections and upgrades one connection to a TCP/IP capability.